Workshop to Synthesize Recent Research on Nevada del Ruiz Volcano; Manizales, Colombia; November 29 - December 4, 1987

This award partially supports several U.S. and Latin American participants in a regional workshop about the Nevada del Ruiz Volcano, to be held in Manizales, Colombia in November, 1987. The workshop is being organized by Dr. Stanley N. Williams of Louisiana State University, with assistance from staff of the newly established volcanological observatory in Manizales. Additional support is being provided by COLCIENCIAS, the Colombian equivalent of NSF, and by other sources. The aim of the workshop is to develop a comprehensive model of the Nevada del Ruiz volcano by reviewing and integrating the various data accumulated by geologists, geophysicists, and geochemists since the catastrophic 1985 eruption of this still active volcano. The workshop should result in a scientifically valuable synthesis which will improve our understanding of what is occurring beneath the surface of this unusual volcano. Prior to its eruption, Nevada del Ruiz was not classified as "high risk"; more than 18 months after erupting, it is continuing to demonstrate an unusually high level of activity compared to similar volcanoes which have erupted in the past few years. By holding the workshop in the vicinity of the volcano itself, visiting scientists will benefit directly from on-site observations and the opportunity to interact with local scientists to develop mutually beneficial collaborative projects. Scientific attention often diminishes soon after the spectacle of an eruption. Holding the workshop now will help to maintain momentum in the research and the development of long-term volcano monitoring strategies that should lead to increased geophysical understanding of volcanic processes in general.